Travel Grant Support for IEEE ICCCN 2013 Conference

This project will support student travel to International Conferences on Computer Communications and Networks (ICCCN) to be held in Nassau Bahamas, on July 30-Aug 02, 2013. The conference will benefit students by exposing them to state of the art research in communications and networking areas